Summer Workshop in Theoretical Economics to be held at Stanford University, Stanford CA Summer 1990-1992

For the past two decades, Stanford has conducted a highly successful summer workshop that has served as a gathering place for extended research interactions among economic theorists. The intellectual and physical environment, extended program format, experienced staff, and support from the University have combined to make the Stanford program uniquely successful over many years. Stanford's program extends over 6-8 weeks with many visitors in residence for the whole period and most in residence for at least four weeks. During this period, there are about 8-10 hours per week of scheduled seminars. The balance of the time provides extensive opportunities for sustained interaction among a large number of researchers. This format has proved to be especially valuable for younger researchers, who have found the summer workshop a fertile environment for developing their ideas and beginning collaborations. Support for this successful series of workshops and seminars should be renewed because of its likely contributions to economic theory. For 1990 Stanford's summer program centers on three themes: New Keynesian Approaches to Macroeconoimcs, Economics with Increasing Returns, and the Economics of Organizations. Each topic will begin with a workshop and continue with a series of paper presentations organized around the main theme. Some of these topics are likely to be continued into the summers of 1991 and 1992, along with the topics of Dynamical Economic Systems and the Theory of the Second Best.